International Materials Institute: New Functionality in Glasses

Lehigh University establishes an International Materials Institute (IMI) on glass science. The goal of the IMI is to advance glass science and education on a global scale. The effort focuses on the functional aspects of glass science, including glassy meta-materials (novel glasses and nanocomposites), functional coatings, glasses engineered for strength, ionic functionality, optical functionality, and bio-functionality. The IMI has a 'virtual' character as it involves strong participation from Penn State University and from eight other universities (Alfred, Cornell, Coe College, MIT, Alabama A&M, RPI, UC-Davis, Ohio U) and two government laboratories (Livermore, Brookhaven). Foreign participants are mainly from Western Europe (France, Germany, Greece, Czech Republic, Italy, UK, Portugal), with one additional each from Japan, India and Brazil. Three glass organizations representing the interest of glass companies advise the investigators with industry's view of the most promising functionalities. Activities of the IMI include international exchange programs of faculty, postdoctoral associates and students; lectures and courses by senior researchers; an REU program; multi-media education modules; pre-college experiments and demonstrations; and annual workshops. The IMI activities will be evaluated annually by independent experts.